Mathematical Sciences: Differential Equations and Continuum Mechanics

The main mathematical aspects of the research will be modeling (derivation and presentation of equation of motion) and analysis (by perturbation methods, bifurcation techniques, and numerical methods) devised for and applied to problems in nonlinear, non-Fickian diffusion with free boundaries. The research is an exciting new devlopment for both its mathematical novelty as well as the wide range of applications of its results. These applications range from controlling the release time of pharmaceutical products and the reduction of the observed degradation of solid rocket fuels in polymer containers, just as these problems become pressing technical issues.